Collaborative Research: Self-Propagating Eddies in Realistic Basins

Interactions of Meddies with Seamounts
Georgi Sutyrin URI
William Dewar FSU

This study will address the dynamics and transport properties of self-propagating, baroclinic-eddies in the presence of topography. Eddies of Mediterranean origin (Meddies) are examples of these features. The dynamical impact of vortex property transport and propagation of seamount-Meddy collisions have been observed buy are poorly understood. Numerical models will be used to examine the following related topics: topographic effects on Meddy transport, topographic influences on Meddy propagation, mean flow generation on topography by Meddies and consequent feedbacks. These studies are pertinent to the question of how to parameterize tracer transport in large-scale models.